Collaborative Research: Ultralow-Loss Torsion Microbalances as New Physics Probes

Torsion balances have played a key role in the history of precision measurement and continue to serve as powerful tools for exploring physics beyond the Standard Model. This project will apply a new class of ultralow-loss, milligram-scale torsion balances to two outstanding problems in fundamental physics: (1) searching for wavelike dark matter and (2) testing Newton's law of gravity at distances below 100 microns. Beyond fundamental physics, the techniques explored may lead to ultrasensitive optomechanical inertial sensors, supporting national priorities in Quantum Information Science and Semiconductors/Microelectronics.

The project builds on the recent development of ultralow-loss torsion microbalances based on strained silicon nitride nanoribbon suspensions, which allow microgram- to milligram-scale test masses to be isolated with microhertz damping rates and placed in proximity to materially inhomogeneous source masses. Two applications of this platform will be pursued: (1) a cryogenic search for vector ultralight dark matter, building on the Pathfinder experiment developed under NSF PHY-209473, and (2) a test of short-range gravity in the little-explored sub-100 μm regime. In pursuit of these goals, we will further develop fabrication and optical readout techniques for torsion microbalances, potentially leading to future applications in chip-scale inertial sensing.